Mathematical Problems from Geometric/Topological Quantum Field Theories

ABSTRACT for DMS 0201683

This project concerns problems at the juncture of geometry, topology, and
physics. The mathematical challenge we address is :(i) to provide a
rigorous framework for functional integrals in geometrical quantum
field theories, and (ii) to use the rigorous framework to prove results
which may be conjectured in the heuristic/informal setting suggested by
physics. Specifically, we will be concerned with : (a) quantum Yang-Mills
gauge theory over surfaces, (b) a three dimensional Chern-Simons gauge
theory, and (c) other functional integrals arising from
geometrical/topological quantum theories. The goal will be to give
rigorous foundations to the mathematical expressions and objects which
arise in these theories and then to use them to further develop
mathematical ideas and solve specific problems. The mathematics involved
includes geometry and topology connected with fiber bundles and Lie
groups, as well as stochastic analysis and infinite-dimensional
integration. Stochastic analysis has often been applied in the study of
the geometry of manifolds. The present proposal addresses situations
which promise deeper applications of stochastic analysis in settings
enriched by geometry and topology.

This research program will bring together geometry and topology with
stochastic analysis to provide solid mathematical foundations for certain
computations done in physics, solve certain specific problems and develop
new mathematical ideas arising from quantum physics. The physics is quantum
field theory, which describes the quantum behavior of forces that govern
the interaction between elementary particles in nature such as those which
make up protons and neutrons. This project is concerned with development
of fundamental mathematics connected with an area of physics. There may
be potential applications to surface physics and other phenomena involving
geometry and stochastics, but this project itself is devoted primarily to
foundations rather than application. History shows that mathematics
arising through an investigation of fundamental notions associated to one
particular context later finds application in areas far removed from the
original context, this being an essential aspect of the centrality of
mathematics to applied sciences.